Analysis of Absolute Deviation, Inference and Model Selection

This project develops a comprehensive approach to estimation,
model selection and inferences for certain regression models, with
applications to health sciences, economics, astronomy as well as
other disciplines of scientific investigations. Various parts of
the project are connected through several key components:
computational aspect is handled by linear programming, inferences
by simulation-based resampling, simultaneous estimation and model
selection by suitably constructed penalty functions, and
asymptotic properties by empirical process theory. The
investigator develops efficient algorithms for parameter
estimation and distributional approximation, establishes small and
large sample properties, and extends the methods and theory to
data with censoring, truncation or other kind of non-random
missingness.

This research project is motivated by and closely related to many
important areas of scientific disciplines, including health and
life sciences, economics, astronomy and sociology. It develops new
tools to assess health risks, drugs and treatments effects and
genetic variations, to analyze policy formation, such as
intervention in unemployment and health insurance, as well as to
understand astronomical phenomena. It provides a platform to
attract and train students with tools for multi-disciplinary
applications.